Expert Systems: Value and Ethical Issues Posed by Advanced Computer Technology

This empirical research project is designed to explore the social values and ethical implications posed by the creation of computer programs designed to replicate human expertise. The plan is to examine the values underlying this artificial intelligence technology by concentrating on ascertaining the professional and social standards of desirability held by the knowledge engineers who design and build these systems. The methodology consists of intensive and structured interviews especially designed to elicit tacit values. It is expected that the ensuing information will make a significant contribution to the forthcoming ethical deliberation as to the development and use of "intelligent machines." Initially, an advisory group composed of two philosophers and one social scientist will scrutinize the method and results. Two additional people, one lawyer and one person knowledgeable in this technology will also be consulted on the project. The results will be disseminated to philosophers, computer scientists, social scientists, and lay audiences in papers and presentations. This project addresses an important issue; the applicant and her advisors are well qualified and she has unusual access to the population to be studied. Collaborative efforts are likely to continue beyond the period of this award. The project is designed well; university support and plans for the dissemination of results are appropriate. An award in the amount of $75,170 is therefore recommended.